Collaborative Research: DMREF: NSF: DFG: Incorporating Disorder and Defects in the Design of Ferroelectric Nitrides

Non-technical Description: Ferroelectric wurtzites show great promise for enabling advanced communications technologies and for reducing computational energy consumption, both of which are key goals of the nation and the National Science Foundation. Their commercial deployment is hindered by limited understanding of the impacts of defect populations on properties, but current state-of-the-art computational techniques rely on unrealistic dilute-limit assumptions that ignore defect interactions with one another and/or with interfaces. This research aims to rigorously capture the interactions and effects of point defects such as heterovalent substitutions (e.g., oxygen replacing nitrogen) and extended defects (e.g., structural damage from bombardment during sputter growth) on properties in wurtzite nitrides. The team includes world experts in simulation, synthesis, characterization, and testing from the U.S. and Germany, and it includes partners from the Army Research Laboratory (ARL) and an industrial advisory board (IAB) who will build on relevant findings to accelerate scale-up and deployment as appropriate. The goal is to bridge the gap between calculations requiring simplifying assumptions and real films grown using commercial techniques to accelerate deployment of these and future DMREF-developed materials.

Technical Description: To-date, when charged defects are simulated computationally (particularly within the electronic nitride space), they are assumed to be dilute and non-interacting, which is invalid for substitution levels in the several- to tens of atomic percent, such as those common in ferroelectric wurtzite alloys. This research will treat defects as components of complex alloys to capture disordered configurations as well as interactions of defects with one another and, eventually, with interfaces. Such calculations will be informed and validated by high resolution electron microscopy capable of measuring not only structural and chemical but also—via electron energy loss spectroscopy (EELS)—local bonding characteristics. The rigorous mechanistic understanding will enable predictive capabilities around interacting (non-dilute) point defects including heterovalent substitutions and will advance towards quantitative predictions of coercive fields, multiscale switching dynamics, and potential degradation processes important to the very devices that the ARL and industry partners on our team will be simultaneously advancing towards deployment.